U.S.-Korea Cooperative Research on Structural, Electronic and Magnetic Properties of Bulk Solids, Surfaces and Interfaces

This award provides funds to permit Dr. Arthur J. Freeman, Department of Physics, Northwestern University, to pursue with Dr. Jae Il Lee, Department of Physics, Inha University, Dr. Soon Cheol Hong, Department of Physics, University of Ulsan, and Dr. Byung Il Min, Department of Physics, Pohang Institute of Science and Technology (POSTECH), for 24 months, a program of cooperative research on structural, electronic, and magnetic properties of bulk solids, surfaces, and interfaces. In this project, these scientists will use newly developed computational methods/algorithms which are the product of their past collaboration. A wide range of phenomena will be investigated jointly using these computational methods, including the structural, electronic, and magnetic properties of metals, semiconductors, insulators, and their compounds, overlays, and superlattices. This research is based on the assumption that the properties of macroscopic samples of solid material are related to and can be derived from the electronic structure of individual molecules and atomic building blocks of that material. A high degree of reliability concerning predictions of physical and chemical properties and phenomena has been achieved using highly sophisticated, fully self-consistent local density computer codes for the calculation of electronic structures of these materials. A wide range of phenomena will be investigated. Applications include understanding the properties and design of new intermetallic compounds and artificial materials. The collaborators are highly respected scientists in the field of this research. Their past collaboration has resulted in significant contributions to the literature of this field. This project will provide valuable support for the PI's work with the (U.S.) multi-institutional Materials Research Group on the Magnetic Properties of Materials. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF).